Large-Scale Nonlinear Programming

Large-Scale Nonlinear Programming

Large nonlinear optimization problems arise in many important
areas of application such as climate modeling, weather forecasting,
network design, and finance. An important open problem is how to
solve these problems reliably and quickly. The proposal describes a
variety of new algorithms, based on barrier techniques, that promise
to be effective on problems of unprecedented size and complexity.
To ensure that the new methods are robust even in the case of high
ill-conditioning, novel regularization techniques are proposed. An
Internet-based solver implementing the new algorithms will be
developed as part of this project. It will allow the engineering
and scientific communities to solve large optimization problems
automatically using a web-based interface.